Particle Response to Fluid Turbulence: A Novel Approach to Measuring in the Particle-Lagrangian Coordinate System

This is a collaborative project between C. Rogers (Tufts U.) and J. Eaton (Standford U.). A combined experimental-numerical simulation approach is proposed to displace the masuring control volume of an LDV system as it were a particle in a turbulent field. The LDV system will use an active control loop. The fluid velocity autocorrelations in a particle-Lagrangian reference frame, and the correlations between the fluctuating velocities of the particle and the fluid at the same point, will be detrmined. The obtained data are similar to the results derived from direct numerical simulations, which currently are feasible only at turbulent flow with low Reynolds numbers. The results may be useful to calibrate various theories and numerical simulations in tow phase flows. The conditions of the experiment are simplified: only point particles are simulated, particles do not affect the flow, the testing domain is two- dimensional, the effects of particle shape and wake are considered. The present project may lead to significant advances in understanding and modeling disperse two-phase flow at high Reynolds numbers of interest in various industrial processes.